Teaching Chemistry for Rural Students with Chemical Research

The Chemistry Department at Midwestern State University (MSU), which has 10 years experience in working with high school students (Project SEED), has designed an eight-week research projects for 12 high school students with no more than three students to a professor. The students will also receive formal career counseling, minicourses in technical writing, research methodology, and Special Topics in Chemistry. Field trips to several outstanding research laboratories and participation in two student-faculty panels on philosophy and ethics are also included. Most of these activities will continue at M.S.U. on one or more Saturdays each month during the academic year.